Regulation of Photosynthesis: Crassulacean Acid Metabolism

Using Portulacaria afra, Peperomia species, Clusia species, and Xerosicyos danguyi, the study will examine the shift from C3-photosynthesis to CAM-cycling to CAM-idling or to CAM. Studies will be conducted at the metabolic, enzymatic, and genetic levels. Detailed studies of CO2 exchange, acid flux, activities of key enzymes, properties of PEPC, PEPC protein levels and their rate of synthesis, as well as measurements of mRNA for PEPC will be conducted during the shift from C3 to CAM-cycling and ultimately to CAM. The shifts will be induced by drought, as a funtion of season, and as a funciton of development. Also to so be pursued is the hypothesis that abscisic acid (ABA) or other hormone is related to the shift, at least in response to drought. By monitoring genes and their expression, it will be determined at what stage during the shift in photosynthetic metabolism that fixation of CO2 shifts from light to dark, when acid flux begins, at what stage mRNAs for key enzymes such as PEPC appear, and when the various enzymes and regulatory proteins appear. %%% The regulation of photosynthesis is one of the most important aspects for the understanding and control of plant growth and development. It has direct relevance to the production of food, fiber, and chemicals. In this project, photosynthetic regulation will be studied in plants which can shift their photosynthetic mode during water stress, in normal development and with seasonal change.